Low-Dimensional Dynamical Systems

Abstract
Misiurewicz

The objective of the project is to perform research in the theory of dynamical systems, mainly low-dimensional, both smooth and continuous.
The Principal Investigator will apply analytical, topological and combinatorial tools in order to investigate real and complex systems. The main
parts of the project are devoted to the study of the attractors for rational functions, rotation sets for maps of trees and graphs, entropy of the
2-dimensional golden mean shift (using methods developed for studying one-dimensional systems), and nonautonomous discrete dynamical
systems, both low-dimensional and general.
For almost every phenomenon from Physics, Chemistry, Biology, Medicine, Economy and other sciences one can make a mathematical
model that can be regarded as a dynamical system. Sometimes the study of this system is extremely difficult, but quite often it can be
reduced to the study of a much simpler, low dimensional one. This project is devoted mainly to the investigation of the properties of this type
of systems from the mathematical point of view. The results that can be obtained are usually much stronger than in the general case.